Bridging Education and Research: Practical Applications of Nanotechnology

This Nanotechnology Undergraduate Education (NUE) in Engineering program entitled, Bridging Education and Research: Practical Applications of Nanotechnology, at the University of California-Merced, under the direction of Dr. Jennifer Lu, will, using existing collaborations, initiate a range of activities that include developing an upper-level, team-oriented, self designed laboratory course on nanoscale device fabrication, organizing a two-day nanofabrication workshop for local community colleges, and facilitating internship opportunities in nanotechnology.

The proposal for this award was received in response to the Nanotechnology Undergraduate Education (NUE) in Engineering Program Solicitation (NSF 07-554), and is being funded by the Directorate for Engineering (ENG), Division of Engineering Education and Centers (EEC) and the Division of Civil, Mechanical and Manufacturing Innovation (CMMI).